XSEDE and OSG 2013 Engagement Program for High School, Undergraduate and Graduate Students

This award provides support for students to attend the OSG User School and the XSEDE-13 conference in San Diego. The participants will
learn about the advances and increased sophistication of research that are being enabled by XSEDE and OSG.
The broader impacts will be through the direct engagement of students who may, in the future, become
researchers, including underrepresented students, including those at Minority Serving Institutions (MSIs)
and smaller colleges and universities across the country